Establishment of a NSF Computer Science Courseware Repository

9354087 Owen This proposal will establish a Natural Science Foundation Courseware Repository at Georgia State University. This repository will collect, organize and store the courseware materials electronically and make them available to educators. The materials it collects will include items developed under NSF funded workshops and curriculum development projects as well as other solicited items. All materials will be referred before being accepted into the repository. ***